Controlled Sharing: Programming-Language Principles and Techniques

Systems where components share information and resources
indiscriminately are often fragile. Conversely, the control of sharing
contributes to modularity, reliability, and security. Java, C#, and
other modern programming languages rely on sophisticated concepts and
methods for controlling sharing. These are embodied in constructs such
as locks, abstract data types, and unforgeable object references, and
in type systems and static analyses.

This project aims to study and develop techniques for controlled
sharing in programming languages. For this purpose, it relies on the
development of foundational calculi (e.g., calculi of objects or
processes). It focuses on capabilities (such as unforgeable
references), on related "packaging" constructs (such as objects and
abstract data types), and on disciplines for the safe use of run-time
mechanisms for controlled sharing.